RIA: Combining Queries and Navigation in Workstation/ServerDatabase Systems

The needs of many application domains are not met by current database system technology. Relational database systems (RDBMSs) excel at providing high-level, associative (i.e., query-based) access to large sets of flat records. Object-oriented database systems (OODBMSs) on the other hand, provide more powerful data modelling capabilities, but primarily support navigation-based access to the data. The goal of this research is to develop flexible workstation/server database systems which can dynamically adapt to the requirements of a wide range of applications, allowing those applications to exploit database capabilities and benefit from the continuing rapid gains in workstation and local area network price/performance. Such database systems will be able to adaptively choose between query-oriented and navigation-oriented strategies based on both compile-time and runtime considerations. The approach taken will be to extend the techniques that have been recently developed for navigation-oriented OODBMSs to co-exist with techniques from the more traditional query-oriented (relational) approach. To achieve this end, however, will require significant work in performance modeling and analysis, the development of new data management algorithms and new query optimization techniques, and the resolution of numerous database systems architecture issues. The results of this project will include analyses of the tradeoffs between data-shipping and query-shipping, algorithms for cache maintenance, query optimization, and memory management, and detailed performance analyses based on simulation and implementation of these new techniques.